Science, Community, and Diversity: Revitalizing Undergraduate Curricula- Concluding Phase

9354521 Ross This grant extends the activities of the Women and Science Program currently funded by the Division of Undergraduate Education of the National Science Foundation, and sponsored and administered by the Women's Studies Consortium of the University of Wisconsin System. The goal of the program is to attract and retain qualified female and minority students in science, mathematics and engineering, by reforming aspects of introductory science courses--content, climate and pedagogy--that discourage capable students from further study of science. The program is founded on the assumption that incorporating new scholarship about gender, science and pedagogy into the design of introductory curriculum will increase the quality of introductory courses in ways that will be attractive to female and minority students. The program supports Distinguished Visiting Professorships of Women in Science on host campuses selected from among the universities of the UW System. Visitors are scientists (from inside and outside of Wisconsin) who have successfully implemented race- and gender-friendly teaching innovations at their home institutions. Visitors teach model introductory science courses and participate in extensive faculty development activities with their hosts. The program also offers Faculty Fellowships to release host faculty to develop new curricula. In addition, faculty development workshops are sponsored at various UW System institutions. The Visitors and Fellows develop new or revised courses that will affect thousands of students in the near future. Faculty development activities will enhance the content, climate, and pedagogy of introductory science courses more broadly throughout the UW System. A comprehensive evaluation of the program in underway. Findings and curricular materials will be disseminated nationally. ***